The Physics of Semiconductor Devices, Fifth International Workshop , December 10-15, 1989, New Delhi, India

Description: This project supports participation by twelve U.S. scientists in the Fifth International Workshop on the Physics of Semiconductor Devices, to be held in New Delhi, India, December 10-15, 1989. The Indian organizers are Professor S. C. Jain, retired director of the Solid State Physics Laboratory in the Department of Defense, New Delhi, and Dr. S. Radhakrishna, of the Indian Institute of Technology, Madras. The conference/workshop, as was the case in the earlier four workshops, will deal with itegrated circuits, VLSI, submicron technology, MOS, bipolar devices, solar cells, high power rectifiers, light emitting diodes and similar devices. It will deal with developments in design, manufacture and use of such devices. It is expected that approximately 300 persons will attend including about 60 from foreign countries including Western Europe, the U.S. and Canada, Australia, Japan, the USSR and Eastern Europe, as well as scientists from developing countries in South and East Asia. Scope: The PI has been the project director for the U.S. delegations to three of the past four conferences, and the Indian scientists, Dr. Jain has been the chairman of all the conferences. These have resulted in proceedings covering the important papers presented at the meetings. This workshop is likely to be quite successful and productive, and the proceedings should add to the scientific literature in this important area. Increased cooperative research is very likely to result between the two countries in this important area.